III: Optimizing Neural Sparse Representations for Efficient Text Document Retrieval

Modern artificial intelligence (AI) systems, like large language models, have completely transformed document retrieval; that is, how computers search for information and answer our questions. They are incredibly effective at semantically matching what a user queries (i.e., by typing a question) with the most relevant documents. However, running these massive AI models for document retrieval are very expensive and requires specialized, high-end computers. This project aims to solve that problem with optimized retrieval techniques. The new methods develop ways to represent queries and documents more compactly and accelerate online inference, which minimizes storage and computational costs while maintaining competitive search quality. This enables fast and accurate document retrieval on standard, affordable hardware. The project integrates these research efforts with an educational plan focused on research mentoring and curriculum development. Ultimately, this project will make advanced AI search tools cheaper and vastly more accessible, while simultaneously training the next generation of graduate and undergraduate students in cutting-edge information retrieval research.

This project carries out a two-thrust research agenda to optimize learned query and document representations for efficient, low-cost retrieval with competitive relevance. The first thrust investigates sparse representation optimization using multi-objective sparsity regularization with multiple learnable and adaptive techniques from document-centric and term-centric perspectives. This thrust aims to reduce retrieval latency and storage costs significantly relative to original representations, addressing a fundamental computational bottleneck in learned sparse retrieval; i.e., the tension between high-dimensional semantic expansion within a massive vocabulary space and efficient inference constraints. The second thrust studies asymmetric representation optimization and co-training for fast, low-cost sparse and dense query encoding, incorporating result fusion through a staged retrieval pipeline. This optimization can substantially reduce online query encoding latency compared to symmetric dual-encoders based on original neural models. Evaluated using public datasets, this project explores novel research tasks at the intersection of model-level representation optimization and system-level retrieval efficiency. It emphasizes an evaluation-driven design to advance our fundamental understanding of relevance and efficiency tradeoffs, significantly reducing the computing and space costs of online inference while retaining the essential benefits of large language models. All research results and software will be made publicly available to foster community growth.